Resonant many-electron dynamics on helium

Non-Technical Abstract:
Two-dimensional (2D) electron systems are of central interest for modern physics. The parameters of these systems can be varied in a controllable way, enabling the exploration of a wide variety of quantum many-body phenomena in a controlled setting. Understanding these systems continues to be a major driver for progress, not only in fundamental physics, but also in nanotechnology and quantum information science. Electrons on the surface of liquid helium were the first two-dimensional electron system discovered experimentally, and they still stand out as the most pristine known 2D system. Superfluid helium at low temperatures functions as a fantastically clean surface without defects and imperfections that are unavoidable in almost all other material systems. Electrons placed near this superfluid surface become bound to it and float in vacuum about 10 nanometers above the surface. They exhibit rich aspects of many-body quantum dynamics. One of the most attractive aspects is the flexibility and tunability of the system. The effects of the interaction between electrons can be effectively modified by changing their density and the geometry of the system. This research work aims to use the available controls to study fundamental problems of condensed-matter physics. Of central interest is the interplay of interactions between different quantum systems and how this interplay affects the electron dynamics away from thermal equilibrium. No general principles underlying such dynamics have been established. Because the system of electrons on helium is so pristine, it is a unique tool for the studies of coupled quantum systems. This work will use various tools of modern experimental and theoretical physics to reveal the basic features of the system. The system of electrons on helium is also an ideal candidate for incorporating into quantum devices and to potentially developing novel quantum technologies. Of particular interest in this respect are devices used in quantum information science. Because of these features electrons on helium are also an ideal platform for training students interested in fundamental science and QIS technologies.

Technical Abstract:
The goal of this joint experimental and theoretical effort is to understand the resonant dynamics of the many-electron system on liquid helium. These non-trivial dynamics result from the interplay the strong electron correlations and the interaction of the electron system with the quantum excitations of the helium surface. The research will address the question of how this interplay modifies the behavior of the system if it is driven away from thermal equilibrium. Specifically, the experimental and theoretical work will (i) study the linear and nonlinear resonant response to high-frequency excitation with the goal to understand the interplay of the strong correlations and the many-body polaronic effect in a Wigner crystal driven by a strong dc field which effectively strengthens the electron coupling to the helium excitations; (ii) explore the nature of the giant nonlinearity of the electron mobility in the crystalline phase and the effect of quantum fluctuations on the crystallization using a single-electron transistor able to count individual electrons as they move past it; (iii) utilize piezoelectric surface acoustic waves to investigate resonant interaction between these waves and plasmonic modes of the electron system and to study the high-frequency electron mobility; and (iv) investigate how quantum and classical fluctuations in the many-electron system affect the spectrum of the inter-subband electron absorption in an in-plane magnetic field that couples in-plane and out-of-plane motion, making the system mimic the optical response of color centers with controlled electron-phonon coupling.